Dissertation Research: Evolution of a Bimodal Trait in Onthophagus acuminatus

A current problem in evolutionary biology is to understand why some morphological traits of animals and plants are plastic and others are rigidly determined. A combination of genetic, developmental, and behavioral studies is required to solve it. The proposed research will make a contribution to the solution. A species of beetle has been chosen for investigation because it has a highly variable trait and because the type of selection it is subjected to is clear. The goals of the research are to assess (1) whether plasticity in this trait shows heritable variation and (2) the significance of variation in this trait. In addition to their value in throwing light on a complex evolutionary problem, results of this research will have potential benefits to the applied field of conservation biology. An important factor determining the persistence of species under threat of extinction is its ability to respond ecologically and evolutionarily to a changed environment. This study of phenotypic variation and plasticity will show how flexible responses are controlled and expressed.